S-STEM: Advancing Graduate Success and Workforce Preparation in Computer Science

This project will contribute to the national need for well-educated scientists, mathematicians, engineers, and technicians by supporting the retention and graduation of high-achieving, low-income students with demonstrated financial need at Kean University. A total of 30 scholars (24 M.S. and 6 Ph.D.) pursuing M.S. and Ph.D. in computer science will receive scholarships that cover unmet need up to $20,000 for graduate students for up to five years. Scholars will receive faculty mentoring and the project will build strong scholar cohorts through a graduate cohort community. Additional activities for scholars include Individual Development Plans (IDPs), professional development in research skills, career preparation, technical communication, and mentored research with faculty aligned in artificial intelligence (AI), cybersecurity, or data science.

The overall goal of this Track 2 Scholarships in STEM project is to increase STEM degree completion of academically talented, low-income graduate students with demonstrated financial need. There is a significant national need to grow the STEM workforce and nurture key talent that will ensure economic competitiveness and provide domestic leadership across critical sectors. This project directly speaks to this need by supporting STEM student success, which will strengthen the workforce in artificial intelligence (AI), cybersecurity, data science, and other high need computing areas. The project will implement an Integrated Mentoring Framework (IMF) that combines Affinity Research Groups (ARG), Multiple Mentors (MM), and Individual Development Plans (IDP) to support graduate students in computer science. The project will be assessed by an experienced evaluator that will use formative and summative evaluations, and the data generated will contribute to the knowledge base regarding effective strategies to support talented, low-income students in STEM. This project is funded by NSF’s Scholarships in Science, Technology, Engineering, and Mathematics program, which seeks to increase the number of academically talented, low-income students with demonstrated financial need who earn degrees in STEM fields. It also aims to improve the education of future STEM workers, and to generate knowledge about academic success, retention, transfer, graduation, and academic/career pathways of low-income students.